Materials Research Science and Engineering Center: "Mixed Organic/Inorganic Materials and Structured Thin Films"

9809687
Herman
The Materials Research Science and Engineering Center (MRSEC) at Columbia University focuses on organic/inorganic materials, with an emphasis on materials chemistry. The Center also provides seed funding for new opportunities in materials research. The Center supports efforts in materials education at all levels, including summer undergraduate research experiences and research experiences for high school science teachers. The MRSEC also supports shared experimental facilities that are accessible to center participants and to outside users, and has strong research collaborations with other universities and industrial laboratories in the New York City metropolitan area.

Research in the Columbia MRSEC is organized in an interdisciplinary research group that addresses the science of inorganic nanocrystal arrays within polymer or organic media. Participants in the Center currently include 12 senior investigators, 4 postdoctoral associates, 12 graduate students, 16 undergraduates and 1 administrative support personnel. Professor Irving P. Herman directs the MRSEC.